Market Channel Evolution and the Transformation of a German Town

This project will trace the impact of modernizing consumer goods channels upon the economic and cultural character of a town community in West Germany. The distribution of mass consumer goods is increasingly performed by vertically integrated market channels dominated by marketing oriented enterprises which take control of retail activities. This project will study this phenomenon in a medium sized commercial town in northern Bavaria. It will trace the history of marketing in the town; identify the causes of market channel integration; and study the impact of progressive market integration on the economic and cultural life of the town and its urban-rural relations. The PI will live in the town for 12 months and conduct ethnographic fieldwork. The project will increase our understanding of the socio-cultural context of trade under expansionary economic conditions. This research is important because the vertical integration of mass marketing channels is a major fact of the modern world, occurring in both developing and developed societies. This analysis, by an experienced scholar of this process in the underdeveloped world, will add an important case and help us understand the similar developments in the developing world.